Molecular Basis for Rabies Virus Neurotropism

This research is designed to identify and characterize the domain of the rabies virus glycoprotein, the protein forming the coat of the virus, that binds to the nicotinic acetylcholine receptor, a neurotransmitter receptor present on the surface of muscle and nerve cells and which may also act as a rabies virus receptor. The segment of the virus glycoprotein that binds to the receptor will be identified and isolated and the role of the individual amino acids and of conformational shape of the protein in binding determined. Once the binding domain is identified, antibodies